Improvement in Computer Aided Instruction

Concordia College plans to transform the teaching of science to general students, pre-service teachers and science majors by developing integrated course curricula involving computers and video technology. This revitalization of the curriculum will enhance scientific literacy among the general student body, bring science majors in step with the rapidly advancing technologies, and prepare teachers willing to use scientific methodologies in their elementary and secondary classrooms. Computerization of the empirical process makes knowledge much easier to attain and eliminates much of the tedium associated with routine activities in science. The addition of video- interactive capabilities to the development of courses for potential majors and for pre-service teachers will also increase the attractiveness of the scientific process, hopefully resulting in more individuals becoming scientifically literate. The interaction generated between science majors and non-major students as a result of the development and implementation of computer-based data gathering and analysis should also enhance the understanding of non-scientists of the scientific enterprise and sensitize scientists to the preconceptions and limitations of the general public.